GLOBAL STUDIES OF EINSTEIN SPACETMES

This project deals with two major areas of mathematical relativity
which border on the fields of 3-manifold topology on the one hand and
numerical/experimental relativity on the other. The first research
topic treats the question of how the spatial topology of the universe
affects its long-time evolution. The second topic involves the
development of an efficient and accurate numerical scheme for the
computation of gravitational waves produced by colliding black holes.
The importance of the first topic is that it seeks to unify the study
of the evolutionary properties of the universe with various
geometrization results and conjectures from pure mathematics, thereby
broadening the scope of results in either field of study. The
importance of the second topic is that it seeks to support the
experimental search for gravitational waves by improving the
theoretical understanding of possible sources of such waves.